Development of Software Tools for Analyzing Databases to Perform Global Pattern Discovery in Genetic Regulation

This award is for a postdoctoral associate in Experimental Science. The associate, Stella Veretnik, will be working on computational biology from an AI viewpoint.